Ultraviolet and X-Ray Bombardment of Planetary Atmospheres

This grant deals with the problem of what happens when solar UV radiation interacts with Planetary Atmosphere, especially the atmosphere of the earth. When solar radiation is incident upon a planet's atmosphere the resulting interaction depends critically on the wavelength of the solar radiation. While rayleigh scattering of the visible light causes a blue sky, the more energetic radiation below 2000 nm can cause dissociation, ionization, and dissociative ionization of the atmospheric molecules. These modified components of a planetary atmosphere may react with the ambient species to form a source of new molecules in the atmosphere, while the results of ionization produces the ionosphere. It is the purpose of the research proposed herein to investigate what happens when solar radiation interacts with a planetary atmosphere and to provide absolute cross sections for each of the specific interaction processes as a function of wavelength. Some of the processes to be studied are also of interest in the study of comets and the interstellar medium. The wavelength range proposed is from 10nm to 140 nm.